NSF Young Investigator

9357462 Duran This NSF Young Investigator award deals with research and teaching in two areas. The first is the behavior of two-dimensional polymer foams compared with two-dimensional foams of classical amphiphiles. The second deals with monolayers of glass-forming polymers at an air-water interface. ***